NSF/AWM Travel Grants for Women in the Mathematical Sciences

The NSF- AWM Travel/Mentor Grant Program supports the travel of women mathematicians who wish to participate in research conferences, as well as, longer term visits to work with a mentor. This program enhances the research activities and visibility and advances the careers of women mathematicians.

All awards will be determined on a competitive basis by selection panels consisting of distinguished mathematicians appointed by AWM . An assessment of the results of these travel/mentor grants will be done annually.

AWM will administer these regular and mentoring travel grants and will continue to attract strong women mathematicians to be involved in all aspects of the program . The NSF-AWM Travel/Mentor Program will promote a strong support and recognition for outstanding young women mathematicians, and hence it will increase the chance of establishing their research program and getting tenure .